Promoting Changes in Physics Departments and Graduate Students: Enhancing Employment Opportunities for Ph.D. Physicists

9512805 Schwartz Two related projects will be carried out to address problems raised by "traditional" employment of Ph.D. physicists. The first is a local pilot program to be carried out at City University of New York. This program consists of 3 parts: 1) a number of supplemental mini-courses to the traditional Ph.D. program in the areas of communication skills, computational skills and the business aspects of high technology; 2) a regular seminar series on traditional and non-traditional careers; and, 3) workshops on job and career seeking skills for graduate students in the Ph.D. program. The proposed program at CUNY will be developed with the input and cooperation of the department chairs, senior faculty and graduate students. The second project is a national program involving direct interaction with the faculty and students at universities in various regions of the nation. This project will nurture local programs to improve and widen career opportunities for Ph.D. physicists. This second project involves working with the faculty and students to identify and develop a series of actions and programs and courses which will maximize and focus the use of local resources. A career seminar series and strategies for supplementing and enlarging the scope of courses for Ph.D. physics students will also be encouraged. ***